Studies of Late Quaternary Climate and Oceanography Based onGulf of California Cores

Laminated sediments collected form the Gulf of California by the PI provide direct evidence of the extent of oxygen minimum zone. During the last glacial and the Younger Dryas events the thermocline waters were better ventilated. PI will use chemical proxies to reconstruct paleochemistry of the Pacific intermediate water from glacial to interglacial time. AMs dating will provide the necessary chronological control.